Laser Ultrasonic Inspection of Concrete Structures

In order to evaluate the performance of a concrete structure it is necessary to establish the condition of the concrete. This project will investigate the feasibility of using a laser pulse method to generate the ultrasonic signal and analysis of the return signal to determine the degree of concrete degradation. This method will be the new technique to inspect concrete.